Evolution of Cratonic Lithosphere in Eastern China

9903159
Rudnick
The Sino-Korean craton is a rare example of an Archean craton that shows
evidence for loss of its refractory mantle root. In the Paleozoic,
diamondiferous kimberlites erupted through the craton carrying minerals and
xenoliths indicative of the presence of a 200 km thick refractory
lithosphere, equilibrated to a cool geotherm. In the Triassic, refractory
garnet peridotite was uplifted in the Sulu region during the collision of
the Yangtze and Sino-Korean cratons. These peridotites may indicate the
presence of the cratonic root at this time. In contrast, Cenozoic
rift-related basalts carry fertile mantle xenoliths that record high
equilibration temperatures and sample to depths of only 80 km. These
observations have been interpreted to reflect the loss of the cratonic root
beneath the Sino-Korean craton, sometime after the Ordovician and it's
replacement with more fertile peridotite, typical of off-craton regions.
Outstanding questions include: 1) whether all of the cratonic mantle was
removed, 2) when it was removed and 3) the mechanism by which it was
removed. We seek to address these questions through a systematic
petrographic, geochemical and Re-Os isotopic study of the three types of
mantle samples described above. Re-Os analyses of chromites from the Sulu
peridotites and whole rocks from the basalt-borne peridotites will be made
in order to determine 1) the origin and age of the tectonic slivers and 2)
when the present lithosphere (as sampled by the Cenozoic basalts) formed.
These dates will allow us to estimate the timing of lithosphere removal,
assuming that it must have occurred shortly before the present lithosphere
formed. Given this, it may be possible to infer the mechanism of removal
of the cratonic lithosphere.